AWARE- Developmental Visit to Taiwan: Developing REUs in Information Technology, Advanced Materials, and Geoscience

0218797
Nader

This is an AWARE developmental visit proposed by Mr. Richard Nader, Texas A & M University to establish International Research Experience for Undergraduates (IREU) sites in information technology, advanced materials, and geoscience in Taiwan. The purpose of this coordinated visit to Taiwan is to develop contacts and plans for developing a proposal for an international Research Experience for Undergraduates site based at the Texes A & M University, and involving the following universities in Taiwan: National Taiwan University, National Taiwan Ocean University, National Cheng Kung University, National Chiao Tung University, National Tsing Hua University and National Sun Yat Sen University. Texas A & M is well positioned for a program of this type and it will advance the NSF objective of developing an internationally competitive and globally engaged U.S. science and engineering workforce.